Pacific Northwest Geometry Seminar

Abstract

Award: DMS-0072397
Principal Investigator: John M. Lee

The Pacific Northwest Geometry Seminar for 2000 to 2003 provides
opportunities for communication between researchers and
dissemination of results and problems in areas such as
differential geometry, algebraic geometry, mathematical physics,
topology, partial differential equations, complex analysis, and
geometric representation theory. Universities based in the
northwestern United States and British Columbia sponsor these
biannual conferences, and local participants are augmented by
speakers from outside the region.

Modern geometry involves techniques and ideas drawn from all of
mathematics and much of physics. Notions distinctive to the
field include curvature, which deduces from measurements of
length and angle the extent to which a geometric space differs
from the simplest, flattest models; symplectic structures, which
are the geometric underpinnings for the Hamiltonian formulation
of mechanics, and our understanding of their geometry has been
opened up dramatically by ideas borrowed from physics and complex
analysis; and symmetry, since spaces with large groups of
symmetries often give our best access to algebraic aspects of
those symmetry groups, and since geometry and analysis at the
space level can yield linear representations of a group or
explain properties of these representations.